Travel Support for the Conference on Architectural Support for Programming Languages and Operating Systems

The International Conference on Architectural Support for Programming Languages and Operating
Systems (ASPLOS) is a premier multi-disciplinary conference for research that spans the boundaries
of hardware, computer architecture, compilers, languages, operating systems, networking, and
applications. ASPLOS provides a high quality forum for scientists and engineers to present
their latest research findings in these rapidly changing fields. It has captured some of the
major computer systems innovations of the past two decades (e.g., RISC and VLIW processors,
small and large-scale multiprocessors, clusters and networks-of-workstations, optimizing compilers,
RAID, and network-storage system designs). This proposal aims to support this highly regarded
conference by obtaining travel funds to help students defray the costs of attending the conference
in March 2013 in Houston, Texas USA. Priority will be given to those students who will present their
research at ASPLOS or its joint workshops, and to women and other under-represented groups.

This proposal will have two primary direct benefits in terms of broader impact. First, the
ASPLOS conference will be strengthened as a result of the greater attendance that this travel
support will enable. Second, those students receiving travel support will personally benefit
from the opportunity to engage in the all-important technical, professional, and social exchanges
that ASPLOS fosters.

We also expect this proposal to have two additional indirect impacts. First, we plan to widely
advertise the available support in order to attract women and under-represented minority groups
in attendance. Second, by providing this support expressly to students, we expect to increase
student participation in the conference. We anticipate that the research results presented
at the conference -- as well as the emphasis on interaction between researchers in academia
and industry -- will be carried back by attendees to their home institutions, resulting in
heightened awareness and interests in multidisciplinary research in computer architectures,
programming languages, and operating systems.